CSR: A New Frontier in Acceleration: Unlocking Irregular Computing for Multiple Application Domains with Ray Tracing Hardware

Modern computers have ray tracing accelerators, which are normally just used to make video games look realistic by drawing life-like light and shadows. However, when computer systems are not running games, such as with datacenter servers for artificial intelligence and databases, these expensive compute engines sit completely empty and unused. This project creates smart software to recycle these idle engines so they can help computers run other applications much faster. Instead of calculating light, the engines will be employed for solving complicated math riddles, organizing large databases, and speeding up artificial intelligence apps without needing to buy new equipment.

The project’s research agenda is organized into four cohesive software-centric thrusts designed to systematically repurpose fixed-function graphics hardware into general-purpose irregular computing processors. The first research thrust establishes novel algorithmic mappings to reformulate non-graphics workloads into hierarchical tree traversals and intersection tests. The second thrust introduces a general-purpose programming framework, implementing high-level programming application interfaces and data-query-handler abstractions that isolate domain experts from underlying graphics constraints. The third thrust focuses on intelligent runtime optimizations—specifically dynamic treelet partitioning, spatially-ordered query scheduling, and wavefront restructuring—to balance workloads dynamically and maximize hardware cache locality. Finally, the fourth thrust integrates these layers into real-world systems to validate end-to-end efficiency.

This project drives significant societal and economic benefits by delivering cost-effective hardware acceleration across critical sectors like healthcare and automated transit. Utilizing existing hardware infrastructure avoids the steep manufacturing costs and environmental carbon footprints associated with designing application-specific integrated circuits. Releasing the completed software libraries as open-source resources democratizes high-performance computing for the wider scientific community. Educational infrastructure is expanded through the integration of data-centric computer architecture topics into graduate and undergraduate university curricula. Furthermore, hands-on laboratory modules, kindergarten through twelfth-grade outreach initiatives, and dedicated funding support actively recruit and retain students in computer engineering fields.